Experimental Nuclear Physics Program

A user mode research program will be carried out in pion physics at LAMPF and PSI. Experiments will focus on new absorption mechanisms involved in pion absorption, and on fundamental pion nucleon scattering, including spin degrees of freedom. The latter work will shed light on the strange quark content in the nucleon and also improve our understanding of the fundamental pion-nucleon interaction. In addition, experiments will be designed for the CEBAF facility relating to electro pion production and nuclear systems. A strong instrumentation effort is involved in these latter activities.